University of Hawaii VISIONLAB

This project, called VISIONLAB, will bring state-of-the-art workstation technology to the University of Hawaii. VISIONLAB will take advantage of the UNIDATA program's data stream to bring real- time weather data, and interact with UNIDATA's support environment to develop new software capabilities directed at the tropical Pacific region. A primary research objective will be mitigating the impact of hazardous storms on society and industry through improvements in understanding and prediction of regional and local characteristics of these events. Results from VISIONLAB research initiatives will train undergraduate meteorology majors in the use of computer graphics workstations for rapid access and graphical display of real-time weather data.